Laboratory Investigations Related to Supercooled Drop Interaction in Ice and Precipation Production

Czys The objective of this research is a laboratory investigation designed to test the hypothesis that collisions between supercooled water drops can produce ice nucleation. The experiments will be conducted using existing facilities at the Illinois State Water Survey and the vertical wind tunnel at UCLA.